Linear Algebra and Geometry: Advanced Mathematics For More Students

The Education Development Center is developing, testing, and publishing "Linear Algebra and Geometry", a modular curriculum that can be used for high school capstone courses in linear algebra and its applications. The student resources contain two main parts: 1) a core semester for all students that develops two- and three-dimensional geometry from a vectorial perspective and that treats matrix algebra and its applications to geometry and other high school topics; and 2) twelve stand-alone modules that develop applications of this core to mathematics, engineering, science, and other STEM fields. The package provides high schools with up to three semesters of topics. The materials are field tested and revised before publication. Research is conducted on student learning experiences related to critical aspects of linear algebra and on the effect of the materials on teaching, learning, and the post-secondary performance of students who study from the materials.